Workshop on Tsunami Community Modeling Facility

Abstract: CMS-9806287, Frank Gonzalez, PMEL/ NOAA The objective of a Community Model is to provide a stable Research and Development infrastructure; an essential for the systematic and efficient development, improvement and application of mathematical/computer models of a physical process (in this case of the impact of a tsunami on a coastline). It provides a more effective mechanism to update and promulgate needed changes in the models, to incorporate important advances in the technology. The concept of a Community Model has been embraced and exploited with considerable success by other scientific communities. This action is to support a workshop that will bring together leading tsunami modelers and experts in tsunami hazard mitigation to discuss the idea of the Tsunami Community Modeling Facility (TCMF), to guide and critique the concept of the TCMF, and to identify important organizational, procedural, and technical issues that the tsunami hazard mitigation community must deal with in order that the TCMF can function effectively and provide a much-needed focal point for advances in tsunami hazard mitigation. The Tsunami Community Model will function as a (perhaps distributed) repository for state-of-the-art tsunami models, for ancillary data required to run the models (bathymetry, topography, ...), for field observational data to test and verify models, and for an archive of documented model runs and numerical experiments. Internet and World Wide Web technology will be exploited to make this facility accessible and useful to the entire tsunami community. The concept is simple but very effective, and is most easily visualized in terms of the functions and activities of several important participants: the Model Steward, the Scientific User, and Tsunami Hazard Planners. (The Model Steward functions as the expert on models supported by the community modeling facility, and maintains and provides the latest release of the model code to users .) Periodic meetings of Users, Planners, and the Model Steward are crucial. Here, important decisions on the further modification and evolution of the models and associated hazard mitigation products are discussed and agreed upon, in order to achieve the primary goals of the Tsunami Community Model.